Calculus Workshops and Conferences

The proposal is for a planning project that will hold a monthly series of two-day conferences and workshops on calculus to be attended by universities, community colleges, and high school calculus instructors -- as well as industrial representatives. The effort will be headed by Professor Shair Ahmad, an extremely able and accomplished mathematician. It will include mathematics faculty members from the University of Miami, Dade County Community College and the Dade County Public Schools. The seminars will concentrate on the role of computers and calculators, textbooks, relevance to other disciplines, conceptual understanding, and developing exercises that stress current day technology. The discussions will be led by small groups of well- prepared individuals familiar with the existing literature on the subjects. The participants will be encouraged to carry on similar discussions in their own institutions.